Towards Simpler Algorithms in Computational Geometry

Computational geometry concerns the design and analysis of algorithms for problems involving large amounts of geometric data. This project seeks simpler and more efficient algorithms for fundamental problems in computational geometry that have applications in computer graphics, computer vision, databases, and statistics. The problems to be studied include geometric optimization, construction of basic geometric structures, and the design of data structures for processing geometric queries. The problems will be approached using randomization, approximation, and techniques for correcting pessimistic worst-case analyses.